SBIR Phase II: Magnetically Actuated Valve System

This Small Business Innovation Research (SBIR) Phase II project is dedicated to
development and testing of Magnetic Valve System (MVS) enabling implementation of
electronically controlled variable timing on camless internal combustion engines. MVS is an
advanced actuator for intake and exhaust poppet valves utilized in internal combustion engines
for control of flows of fresh charge and exhaust gases. LaunchPoint Technologies, Inc. will
design and build the MVS actuator and demonstrate its operation on an experimental internal
combustion engine. The advantages of MVS technology originate from the nature of the magnetic
spring actuator that provides efficient control of the valve position and speed during valve
opening and closing events. LaunchPoint’s cost-effective and robust technology will enable
implementation of highly anticipated electronically controlled variable valve timing on a mass
production engine.
The broader impacts of this research are a combination of significant improvements
in fuel efficiency, reduction of emissions, and improved power characteristics of conventional
spark ignition and compression ignition engines. When a reliable, electronically controlled
system is delivered, the economic and social impact of this technology will be broad. The MVS
actuator can potentially be used in millions of internal combustion engines employed in
automobiles, trucks, bulldozers, and stationary generators. It will enable implementation of
emerging advanced combustion technologies such as Homogeneous Charge Compression
Ignition and Compressed Air Hybrid. Widespread adoption of MVS actuators would result in
substantial decrease of petroleum usage, adverse effects on the environment such as air pollution
and greenhouse gas production, and improve energy independence.